Presidential Young Investigator Award

This action funds a five year Presiential Young Investigator award. Dr. Koide's research in plant physiology is directed to an understanding of the role of phosphorus nutrition in the plant's response to drought. Plants infected with symbionts differ in their water use and phosphorus uptake during water stress. Molecular mechanisms determining the plant's productivity under these conditions will be determined.